U.S.-Argentina Program: Fifth Latin American Workshop on Magnetism, Magnetic Materials and Their Applications; San Carlos de Bariloche, September 3-8, 2001

0105281
Oseroff
This U.S.-Argentina Program award will provide support for the Fifth Latin American workshop on magnetism and magnetic materials and their applications organized by Dr. Saul Oseroff of San Diego State University and Drs. Manuel Tovar and Maria Teresa Causa of Centro Atomico Bariloche. This workshop will be held in San Carlos de Bariloche, Argentina, September 3-8, 2001.
This activity will encourage new collaborations between researchers from the U.S., Latin America and Europe within different areas of magnetism, promote mechanisms for long term collaborations involving academia, industry and government, and identify new areas of research for joint collaborations.